Upgrade of a Wide Bore NMR Spectrometer at Florida State University

This is a proposal to refurbish and upgrade an NMR spectrometer system to be used for high resolution multinuclear studies of liquids. The spectrometer will be used for a wide range of studies including metabolism in marine invertebrates, molecular conformation in gramicidin, and interaction of metals with organic polymers. A new magnet will be obtained that has higher field, better homogeneity, and superior stability than the previous system. The spectrometer console will be rebuilt to accommodate the different resonant frequency of this new magnet. This will be a very cost effective way to provide the required instrumental capacity for these studies.